Differential equations and the geometry of manifolds

Abstract

Award: DMS-0503506
Principal Investigator: Jeff A. Viaclovsky

The first project supported by this award deals with compactness
results for certain classes of Riemannian metrics in dimension
four, particularly for anti-self-dual metrics and extremal
Kaehler metrics. With certain geometric noncollapsing
assumptions, the appropriate moduli spaces can be compactified by
adding metrics with generalized orbifold singularities. A
long-term goal of this project is to use this compactification to
define new smooth invariants of four-manifolds. The second
project considers conformal deformations of metrics, certain
fully nonlinear curvature equations, and relations with
Riemannian functions in dimensions three and four. A crucial
problem in this direction is to prescribe a symmetric function of
the eigenvalues of the Ricci tensor, generalizing the Yamabe
problem.

A recurring theme in geometry is the relationship between
topology, a soft or stretchy version of the shape of a space, and
the possible geometries on that space. In the same way that the
familiar round geometry on the two-dimensional sphere is more
appealing and geometrically distinctive than any of the nearby
geometries obtained by pushing in or pulling small regions on the
sphere, one likes to hope that most manifolds of low dimensions
will carry geometries that are somehow optimal - especially
symmetric geometries, or minimizers for some sort of total energy
measurement. The projects described above seek to discover such
optimal or extremal geometries in some important three- and
four-dimensional cases.